US-USSR Workshop: Quaternary Paleozoology; October 23-27, 1993, Springfield, Illinois

A joint workshop on U.S.-Russia Quaternary Paleozoology to be held at the Illinois State Museum in Springfield, Illinois on 23-27 October 1992 will focus on topics in Holarctic taphonomy; vertebrate taxa, assemblages, paleoecology, and evolution; invertebrate assemblages; human-animal interactions; and extinctions and the modern fauna. The workshop, which will be co-organized by Dr. Jeffrey J. Saunders and Bonnie W. Styles of the Illinois State Museum, and by Dr. Gennadiy F. Baryshnikov of the Zoological Institute of the Russian Academy of Sciences in St. Petersburg, is intended as the first step toward a major collaborative U.S.-Russia research program in Quaternary Paleozoology. The purposes of the workshop are to disseminate baseline information on current research, methods, and concerns in Holarctica that will nurture long-term joint research projects and proposals; establish research partnerships; and initiate an enhanced Holarctic faunal database suitable for studies of biogeography, human adaptations, and global warming. This project fulfills the program objective of advancing scientific knowledge by enabling leading researchers in the United States and the former Soviet Union to combine complementary efforts and capabilities in areas of strong mutual interest and competence in the field of basic scientific research on the basis of equality, reciprocity, and mutuality of benefit.